2014 SAT/SMT Summer School

Formal methods have made significant advances during the last decade, and now form the backbone
of formal assurance across hardware and software industries. Underlying many of these techniques
is the capability to effectively reason about system properties, often by describing the properties
as constraint satisfaction problems and delegating the reasoning to a constraint solver. The most
common constraint reasoning engines in use today are satisfiability (modulo theories) solvers (SAT
and SMT). As a rapidly developing field, there is a lack of highly trained users and researchers
that will sustain and further advance the field. The SAT/SMT summer school addresses this issue by
familiarizing young researchers with cutting-edge solver technologies and their applications.

The SAT/SMT summer school addresses this issue by familiarizing young researchers with cutting-edge solver
technologies and their applications. The lecturers at the school are world-renown experts, and the three day
gathering gives the students the opportunity to discuss the lecture topics, their own research, and the
challenges and future directions with these experts. The material is covered rigorously, with depth and breadth,
but at a pace appropriate for a student audience, making the school a unique place for disseminating new research
to the future users and researchers.